Educational Innovation: Collaborative Proposal: Integrating Logic into the Computer Science Curriculum

Institution: William Marsh Rice University
Proposal Number: EIA 0086264
PI: Moshe Y. Vardi
Title: Collaborative Research: Integrating Logic in the Computer Science Curriculum

This CISE Educational Innovation (EI) proposal requests funds to develop a series of modules that seamlessly integrate logic and logic-based software tools into existing, widely taught computer science (CS) courses. Few undergraduate computer science curricula prepare students adequately in logic. The typical student sees a few weeks of truth tables and propositional logic in discrete practical work. These modules would allow CS departments to easily modify their curricula to rectify this situation. By supplying modules, complete with lecture notes, presentations, problem sets, and tools, the investigators hope to facilitate curricular treatment of applied logic at all levels of college education, particularly in CS departments with scarce resources. This project has the potential to have a major impact on the way that CS is taught.